Doctoral Dissertation Research in Sociology

This is an award under the Grants for Improving Doctoral Dissertation Research program. It will support a study of the effects of social class locations on women's orientations to work, employing a life-course perspective to analyze data from 90 semi- structured interviews. Two main questions will be investigated: 1. Are there social class differences in women's subjective experience of work? 2. To what extent can social class differences in subjective work experience be linked to social class differences in women's objective experience of family, work and school? This research will contribute to the sociology of gender roles, social class, family, and occupational stratification. In addition to the scientific gains to be achieved by the research, this award will materially assist a highly promising student in completing research for the Ph.D. dissertation. Thus it contributes to the future scientific manpower of the nation and the thorough training of the next generation of sociologists.